Molecular Biology of Insect Gap Junctions

The experimental methods in the proposed research involve the cloning and sequencing of gap junction genes from the tobacco budworm and the fruitfly. Gap junction gene fragments will be isolated from cDNA libraries by polymerase chain reaction amplification using PCR primers synthesized from candidate insect gap junction protein sequence already in hand. PCR products will be cloned, sequenced, and used to screen insect cDNA libraries for full length gap junction genes. Candidate genes will be molecular characterized and confirmed to code for authentic gap junction protein in functional Xenopus oocyte expression assays and by immunocytochemistry. Nucleic acid and antibody probes will be developed against gap junction genes and their proteins for use in future studies which will utilize Drosophila as a model for investigations on the role of gap junctions in tissue growth and patterning in multicellular animals. %%% The goal of the proposed research is to characterize at a molecular level the gap junctions in insects. Gap junctions consist of plasma membrane-associated protein channels through which ions and small molecules pass directly between cells. Gap junctions are thought to be involved in the cellular exchange of signalling molecules which regulate tissue growth and patterning. Drosophila provides a powerful experimental model to investigate the involvement of gap junction-mediated intercellular communication in development.